Pelagic to Benthic Coupling of Recruitment in the American Lobster (Homarus americanus)

Rates of larval settlement may be a major determinant of subsequent year-class size for many benthic invertebrates. However it is often difficult to elucidate the relative importance of pre- and post-settlement processes to spatial and temporal variability in recruitment. The American lobster, Homarus americanus, recruits from a pelagic postlarva to shelter- providing benthic substrata, but little is understood about the regulating factors or the consequences of this process. This project will examine the linkage from late pelagic to early benthic phase along the central coast of Maine, where shallow subtidal cobble provides prime recruitment habitat. Previous studies from 1989-1991 suggest that lobster recruitment at some sites may be limited by larval supply, whereas others may be limited by the availability of suitable habitat. This study will utilize an experimental approach at two different sites that consistently represents the extremes in recruitment density despite apparent similarities of the habitats. At these sites habitat manipulations and postlarval seeding experiments will test the influence of postlarval supply, habitat quality, and density-dependent processes on benthic recruitment. Hydrographic data will be collected to examine possible differences in stratification as well as absolute temperature structure that may influence postlarval diving behavior.